Mathematical Sciences: Analysis and the Geometry of Submanifolds/Injectivity Problems in Geometry

9625392 Smyth This project lies in the area of differential geometry and submanifold theory. The investigator plans to pursue the Caratheodory conjecture (a sphere in 3-space must have at least two umbilics), the stability conjecture for continuously differentiable maps in two variables, and function theoretic aspects of minimal surfaces. In addition, they will examine principal curvatures of hypersurfaces. Submanifold theory deals with various properties - metric, topological, global and local - of curves and (hyper-) surfaces lying in Euclidean and sometimes more general spaces. An important consideration in submanifold theory is to understand how extrinsic properties of a submanifold interact with its intrinsic properties. This project contains two of the outstanding conjectures in this area; attempts to interface with other areas of mathematics such as dynamical systems theory and algebraic geometry.